Interplay Between Thermodynamic and Kinetic Factors in the Formation of Metastable Phases

Four alloy systems are examined in order to compare the formation of metastable phases with related thermodynamic and kinetic modeling. Two ternary systems are selected that display negative heats of formation; these are subjected to a schedule of rapid quench rates from the liquid. Observed metastable phases that form are compared with theoretical predictions based on a model of continuous cooling crystallization kinetics. Two binary immiscible alloy systems with positive heats of formation are included in the research in an attempt to produce metastable phases by sputtering or mechanical alloying. Phase predictions based on modeling of the respective free energies and their changes with temperature are planned for these binary systems.